Student Travel Support for the 50th International Conference on Very Large Databases 2024

This project will provide NSF support for students to attend and participate in the 50th International Conference on Very Large Databases (VLDB 2024) to be held in Guangzhou, China. The grant will be used exclusively for students in US-based institutions, and it will enable the supported students to travel to Guangzhou to participate in the conference and its associated workshops. The funding will defray the registration, travel, and lodging costs for the students.

This grant will enable a life-enriching first-time experience for many students, giving them a taste of the research environment in both academic and industrial circles worldwide. VLDB is a premier conference in the area of databases that brings together technical research papers, tutorials, and workshops centered on various aspects of database research and practice. Participation in this conference will enable the students to enhance their scientific foundation and build their professional networks, and thus contribute directly to training the next generation of scientists who are both consumers and developers of technology in database management system design and implementation. The grant will have a direct impact in creating a highly qualified workforce who can take on the emerging data science challenges of the future.